CAREER: Molecular Thermodynamics of Polymer Blends and Solutions: A Research and Teaching Program for Early Career Development

ABSTRACT CTS-9502565 Kevin Howell Texas A&M University The molecular thermodynamics of polymer blends and solutions will be investigated using new liquid state theories, computer simulations and small-angle neutron scattering (SANS). Integral-equation methods, such as PRISM theory, will be developed to understand the interplay between chain conformations and phase behavior in solutions. The computer simulations will employ the Gibbs ensemble approach to study symmetric binary blends and osmotic equilibrium in polymeric solutions. SANS experiments will probe the phase behavior of polyolefins as a function of molecular weight, architecture and composition. The research may contribute to improved processing of recycled plastics and development of advanced polymeric materials. The educational plan includes revision of thermodynamics course and introduction of a course in experimental design at the undergraduate level. New graduate courses will be developed in statistical mechanics and polymer physics.